Management of the Design Process in a Concurrent EngineeringEnvironment

Concurrent engineering strives to perform design activities simultaneously, rather than in series as in the case of traditional design. This may result in reduction of the duration of the design project, cost savings, and better quality of the final design. The concurrent strategy, however, might increase the complexity of the design process and make it more difficult to manage. The aim of this research is to develop a methodology for management of the design process in a concurrent engineering environment. The methodology includes the development of a prototype system that will decompose and simplify the design process and reduce the computational time of product development. Information flow and organizational characteristics of complex design projects will also be analyzed. The system includes a multi-agent architecture to model the concurrent engineering environment, a negotiation model for conflict resolution and a module to integrate product modularity concepts with the management of design changes.